Conference: 49th Annual Maize Genetics Conference to be held in St. Charles, IL on March 22-25, 2007.

The 49th Annual Maize Genetics Conference will be held March 22-25, 2007 at the
Pheasant Run Resort and Spa in St. Charles, IL. The meeting offers members of the
Maize Genetics community the opportunity to present and discuss their most recent
research results. A wide range of topics are covered, ranging from classical to
molecular genetics. The 49th Annual meeting will feature 45-minute talks by four invited
speakers, 15 minute talks given by individual participants and two poster sessionss.
The invited speakers will be: Sarah Hake, Plant Gene Expression Center; Martha
James, Iowa State University; Susan Lindquist, Whitehead Institute, MIT; and Blake
Meyers, University of Delaware.
The Maize Genetics Conference provides an outstanding opportunity for
graduate students to meet and interact with scientists in the field, to discuss their
research ideas as talks or posters, and to begin to establish the scientific networks that
will prove invaluable throughout their careers.